CDS&E: Optimization of Advanced Cyberinfrastructure through Data-Driven Computational Modeling

Modern scientific and big-data computing systems must balance multiple system attributes such as power,
performance, and reliability to meet application science demands. These systems and their designers are, however,
constrained by the lack of clear and well-defined methods to guide system design and tuning. This reduces the
overall effectiveness of modern strategic computing systems. This project is developing new
techniques for quantitatively characterizing and optimizing system tradeoffs in a wide range of
modern strategic computing systems. The short term goal of this project is to develop models, analyses,
and optimizations that will enable system software, applications, and system architects to make effective
end-to-end performance tradeoffs. The desired long-term impact of this research is to increase the
overall efficiency and effectiveness of current and emerging strategic computing systems. The techniques
developed as part of this project will also be integrated with large-scale computing educational programs
at the University of New Mexico and across the country.

This research is grounded in stochastic inter-collective-interval model for characterizing
the performance of application/system-software configurations. To this end, the project is
investigating techniques for estimating how different system software and applications mechanisms change
application model parameters, providing a general means for understanding application/system software
performance tradeoffs. In addition, the project is examining optimization techniques that leverage
these models to improve resource allocation decisions in system schedulers and runtime systems.
These techniques are being evaluated based on their ability to improve the overall performance of modern
strategic computing systems in areas such as scheduling, power management, and data locality. The techniques
developed as part of this project will also be integrated with large-scale computing educational programs
at the University of New Mexico and across the country.